Acquisition of a CCD X-ray Diffraction System

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Rutgers University in New Brunswick will acquire a X-ray diffractometer with CCD detector. This equipment will enhance research in a number of areas including the following: a) organo-lanthanum chemistry; b) solid state chemistry; c) biodegradable polymers; d) organometallic chemistry; e) studies of high-K dielectrics; and f) synthesis of complex nucleoside antibiotics.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules. These studies will have an impact in a number of areas, including materials science and biotechnology.